Mathematical Sciences: The Analysis of Numeral Methods for Solving Vlasov-Poisson System

This researh project investigates numerical techniques for solving Vlasov-Poisson systems, including a convergence study of the Lax-Wendroff method for one dimensional problems and a comparison with simulation or particle-in-cell methods. A Vlasov-Poisson system typically consists of a hyperbolic conservation law coupled with the Poisson equation. The research results are expected to have applications in stellar dynamics and in plasma physical settings.